ARFMP: Renovation and Replacement of Biochemical Research Facilities

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to the University of Missouri - Columbia for the repair and renovation of Schlundt Annex so that it can house the research and research training programs in protein structure of the Biochemistry Department. This building was constructed in 1940 and has not previously been renovated. The ARFMP grant of $1,449,728 and $1,534,760 provided by the grantee as cost sharing will be used to modernize these research and research training facilities and permit a strong and coherent research group to be unified along with a transgenic plant facility in a contiguous research space. This project will address the need to improve the current research infrastructure by reconfiguring the space so that it is more functional, installing centralized air conditioning and heating and the appropriate duct work, increasing electrical services, improving the access to all floors, upgrading the transgenic plant facilities, and constructing laboratories to house the protein sequencing and peptide synthesis facility. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of quality undergraduate and graduate students and postdoctoral fellows. Students trained in these laboratories, where there is a coherent grouping of strong faculty leadership surrounded by a configuration of pertinent facilities, will be able to keep abreast of the latest developments in an important area of biochemistry.